Collisional Energy Transfer Probabilities for Vibrationally Excited OH

Observation of the emission from the OH molecule is used to investigate the temperature, structure and dynamics of the mesopause region of the atmosphere. In order to interpret the variations of the ratios of different OH band intensities requires an accurate knowledge of the rate constants, collisional energy transfer, and population of the various vibrational levels. This laboratory study will use state of the art laser photo excitation techniques to investigate state- specific rate constants and collisional energy transfer with emphasis on the high vibrational levels.